EAAI-11: The Second Symposium on Educational Advances in Artificial Intelligence

This award supports participants to EAAI-11, The Second Symposium on Educational Advances in Artificial Intelligence. EAAI-11 will be collocated with the Twenty-fifth AAAI Conference on Artificial Intelligence (AAAI-11), to be held August 7-11, in San Francisco. EAAI-11 provides a venue for researchers and educators to discuss pedagogical issues and share resources related to teaching artificial intelligence (AI) and using AI in education across a variety of curricular levels (K-12 through postgraduate training), with a natural emphasis on undergraduate and graduate teaching and learning. The EAAI symposium will seek and disseminate contributions, such as model assignments, syllabi, projects, and ready-to-adopt materials for teaching AI, address how to more effectively teach AI in multi-disciplinary contexts involving subjects like biology or economics, and how themes from AI can be used generally to enhance education and engagement of students in Computer Science and STEM disciplines. EAAI will include a session "How AI and AI education can improve CS education and outreach."